National Physics Education Program Collaboration

This proposal, submitted by California State University, Hayward, and Lawrence Livermore National Laboratory, is to establish a program that will increase the retention rate of underrepresented minority college students majoring in physics. It will also increase the number of these same students who will ultimately receive doctoral degrees in physics and thereby expand their numbers in the workforce and professional physicists. This proposed program will achieve the following goals: 1) Increase and retain underrepresented minority (Black, Hispanic and Native American) students in physics through their B.S., M.S., and Ph.D. degrees. 2) Increase number of underrepresented minority students exposed to physics research at a national laboratory. 3) Provide scientists to serve as role models with similar cultural backgrounds to mentor these students. 4) Establish and formalize national organizations of underrepresented minority students; e.g., Black, Hispanic, Native American.